Estimating the Return to Education - Some Econometric Solutions

Economists have long speculated that the measured (income) returns to education may reflect the correlation of schooling levels with other variables related to earnings, such as ability. There have been many attempts over the years to estimate the return to education without bias from omitted variables that are correlated with educational attainment and with earnings capacity. If education were randomly assigned, the returns to education would be consistently measured simply by comparing the earnings of more and less educated individuals. In the absence of random assignment, the omitted variable bias can be overcome by using instrumental variables that are correlated with education but have no other effect on earnings. This project uses Vietnam- era draft lottery categories to derive an instrument for years of education in a wage equation. As a consequence of the lottery, the risk of induction was randomly assigned on the basis of individuals' birthdays. Because it was necessary for young men seeking to avoid the draft to take draft avoidance measures (e.g. school attendance) before the cutoff lottery number for the draft was actually known, the lottery has an influence on years of schooling that differs from its influence on induction. A second project uses variations in educational attainment by season of birth to estimate the returns to education. It is suggested that compulsory schooling laws -- which typically mandate school attendance until age 16 -- interact with age at school entry to produce a season of birth effect on education. Resolution of this issue is of substantial importance for education policy and economic theory. As the average incomes of high school and college graduates continues to diverge, it is vital to understand more about the relationship between schooling and earnings.